Purchase of a Superconducting Fourier Transform NMR System

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at North Carolina State University acquire a 300 MHz NMR spectrometer which will be used in research investigations in the following areas of chemistry: (1) The synthesis of natural products and biologically active compounds using chiral auxiliary mediated asymmetric synthesis; (2) The generation and reactions of nucleophilic capped 1,3-dipole equivalents to carbonyl ylides; (3) The competition between electron donation and withdrawal in fluoro- and methoxyketones; (4) Theoretical and synthetic aspects of the rapidly expanding field of organofluorine chemistry; (5) The incorporation of fluorine atoms into organic molecules by devising new approaches to synthesize selectively fluorinated organic compounds; (6) Organo-analytical chemistry. Nuclear Magnetic Resonance (NMR) Spectroscopy is the most powerful tool available to the chemist for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectroscopy is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in areas such as polymers and catalysis, and in biology.